Three-Manifolds, Singularities, and Invariants

For hyperbolic manifolds there are postulated connections between
geometric, representation-theoretic, and quantum based invariants of
manifolds. The PI will work towards specific conjectures relating
these invariants; in particular, he will investigate a scissors
congruence approach to the volume conjecture and he will continue work
on his conjecture relating the A-polynomial with variation of Bloch
invariants. The research on these connections involves invariants that
are related to number theory and algebraic K-theory, and machine
computation has been an important component of the research. The main
tool is the program Snap, and another important aspect of the project
is further development of this program. The PI will also continue his
investigation of commensurability properties of 3-manifolds.

This proposal addresses some long-term open questions concerning
3-dimensional space forms. These questions involve invariants that
span different areas of mathematics, creating interactions of low
dimensional topology with algebra, number theory, and theoretical
physics. Links between disparate areas provide much of the power of
mathematics, and strengthening these links increases the power. The
project will also lead to a major enhancement of powerful 3-manifold
software, originally developed in a project led by PI and C. Hodgson,
that is an important tool for the research of this proposal and is
also widely used in the mathematical community.